Research Experiences for Undergraduates at the University of Virginia

A summer program for undergraduates will be held at the University of Virginia. The students will work on the various research programs now underway in the Physics Department, and will meet as a group to discuss their experience and progress. NSF support is highly recommended.